High-Field FT-NMR for Undergraduate Instruction and Research

A 300 MHz Fourier Transform Nuclear Magnetic Resonance Spectrometer (FTNMR) is being purchased for use throughout the chemistry curriculum, beginning in the first year. In freshman chemistry a simple reversible photolysis is being studied as a possible solar energy storage vehicle. Sophomore organic chemistry students are using the instrument for mechanistic studies, indentification of compounds and undertaking multiple pulse sequence experiments. Students in upper level courses are investigating phase changes, rotational barriers, reaction rates, equilibria, and advanced nmr techniques.